9th European "Chemistry at Interfaces" Conference, Zakopane,Poland; May 19-25, 1986 (Travel Grant)

Individual travel support is provided to allow the principal investigator to deliver a plenary lecture at the 9th European "Chemistry at Interfaces" Conference to be held in May in Poland. The topic of the plenary lecture is "The Development of Ideas in Surface and Colloid Science." Two of the three major thrusts of the conference are dynamics of interfaces, and transport phenomena in dispersed systems. In connection with this conference, the principal investigator will visit a number of European laboratories involved in colloid and surface chemistry, and will prepare a report on European activities in the liquid colloid and surface field.